Developing Elementary and Middle School Mathematics Professionals

Abstract 93-55541 Belleview Public Schools, District #118 Michael Koenig, Jerry P. Becker Developing Elementary and Middle School Mathematics Professionals This project is a 3-year teacher enhancement program in mathematics for 300 elementary and middle school teachers. Starting in the first summer, all the teachers in Belleview, IL will receive teacher enhancement, and successive groups of teachers from surrounding districts will start in each of the next two years. For each teacher, the program will have two summer components, 4-weeks and 2-weeks respectively, with monthly full day seminars during the intervening school year. Community involvement includes business leaders, parents, and district administrators. District teachers will be leaders, along with external specialists, in carrying out the program. The request from NSF is $2,038,699 over the three years with a cost-sharing amount of $521,499.